NSF Support of the National Oceanographic Partnership Program (NOPP)

Funds are being provided via an interagency transfer to provide cost sharing for ongoing and new projects being conducted under the auspices of the National Oceanographic Partnership Program (NOPP). FY2001 funds are provided for cost sharing the following six projects: 1) support of the 2001 National Ocean Sciences Bowl; 2) year three incremental support for the FY1999 NOPP project entitled in Front Resolving Observational Network; 3) supplemental support for a FY1998 NOPP project regarding the NEPTUNE Feasibility Study; 4) support of the Ocean Information Technology Infrastructure committee and report; 5) support for the NOPP Interagency Ocean.US Office; and 6) support of an NAS/NRC Ocean Studies Board study on Ambient Noise in the Ocean and Potential Impacts on Marine Mammals.